Furthering U.S. Interests and Leadership in International Bioscience

9814250

The U.S. biology community is represented by the National Acadmy of Sciences (NAS) in five international scientific unions: the International Union of Biological Sciences (IUBS), the International Union of Physiological Sciences (IUPS), the International Union of Pure and Applied Biophysics (IUPAB), the International Union of Microbiological Sciences (IUMS), and the International Union of Biochemistry and Molecular Biology (IUBMB). There are two overarching issues to which the five committees of U.S. scientists who represent U.S. interests in these international organizations have assigned high priorities. The first is the need for new, inclusive, multidisciplinary, and integrative approaches to biological questions. The second is the need to build human and research capacity in developing countries. This award will permit the NAS to continue to manage U.S. participation and assert U.S. leadership in these bioscience unions for an additional 36 months. It provides dues payments to the five international organizations and funds to support the activities of the five corresponding U.S. National Committees.

***